Equipment to Improve the Undergraduate Biochemistry Laboratory Program.

The goal of this project is to provide equipment to support the initiation of biochemistry laboratory and senior-year research programs. The equipment is for centrifugation, spectrophotometry, and potentiometric techniques. The Biology Department is revising its curriculum in order to offer a greater focus on the health sciences. The restructuring already has doubled departmental enrollments. The new equipment is helping to produce graduates who are better prepared for advanced study and better able to serve the community at large. The grantee institution is matching the NSF award with a substantially greater sum obtained from non-Federal sources.